Remote Sensing Image Processing System

The evolution of computer technology has made possible the implementation of sophisticated hardware and software for the digitization, storage and analysis of remotely sensed or map-based geographic data. The principal investigators are pursuing the exploitation of micro computer-based geographic information systems with the goal of making them a widely available tool for geographic information analysis.